New Mexico Analysis Seminars 2007-2009

This is an award of $25,000 to support the New Mexico Analysis Seminar (NMAS), an annual conference in mathematical analysis, for the next three installments in this conference series. The organizers plan to make this conference a forum for the presentation of the most recent significant results in this area of mathematics. The NMAS will provide a very exciting intellectual atmosphere for students and faculty. The funds requested support travel and subsistence for invited speakers and participants, especially student participants, without other means of support. The funds will be used to support mainly graduate students, recent graduates, women, minorities and persons with disabilities attending the conferences.